California Advocacy for Mathematics and Science

The California Advocacy for Mathematics and Science (CAMS) initiative will bring together top-level leadership from the State Superintendent of Public Instruction and the Governor's Office of Child Development and Education in support of improving mathematics and science education with an emphasis on full participation for underrepresented groups. The CAMS initiative addresses several barriers to improvement of K-6 science and middle grades mathematics programs in the state. The program has three objectives: 1. Galvanizing public support for improving mathematics and science education. 2. Developing and promoting elementary science instruction. 3. Replacing the usual curriculum and instructional features of middle grades mathematics instruction with materials and activities consistent with NCTM Standards. The CAMS initiative will make use of special meetings with policymakers, business and community leaders, and educators to heighten public awareness of the importance of science and mathematics education. Professional development and support will provide the basis for improved science instruction in the elementary grades and mathematics instruction in the middle grades.